Tomographic Inversion of Seismic Data in Three Dimensional Anisotropic Media

This proposal seeks funding to develop seismic tomography software for three dimensional anisotropic media. The software will be used in geophysical and geotechnical applications. It would incorporate a method of estimating uncertainties that is based on quantifying the effect of a fixed number of random perturbations of observations on the solution. The software would be tested using seismic data obtained from small scale isotropic and anisotropic models constructed in the laboratory. The proposed study represents a new direction of research for the principal investigator that should lead to more interdisciplinary studies with colleagues in computer science and civil engineering.